REU: National Center for Computational Electronics

A Center for Computational Electronics (CCE) will be formed at the University of Illinois at Urbana-Champaign and located in the Beckman Institute. The Center shall promote effective use of large computational resources and shared experiences for simulations including device modeling, process simulations and particle Monte Carlo codes, which includes physical details as electronic band-structure and scattering mechanisms. It will provide a forum for the exchange of ideas and technical assistance for matters involving device modeling using supercomputers. The Center will not provide directives for research goals nor will it interfere with the activities of any research group or individual. However, it will promote collaboration between investigators with similar interests and make available basic computer codes. The standardization of material parameters is the second goal of this Center. The Center shall collect, organize, and format the data for the device simulation community and make them available in cooperation with the Center for Compound Semiconductor Microelectronics (NSF-ERC). The Center will support graduate students in a cross-disciplinary environment with special emphasis on algorithm development for solid-state device modeling. Futhermore, the Center will participate in the on-going Visitor's program of the Beckman Institute and National Center for Supercomputing Application. The Center will act as an international contact with research groups overseas, to organize periodic workshops, to publish a newsletter, and to establish and maintain a strong communication network for the device simulation researchers.